Seismological Studies of Deep Earthquakes and Subducting Slabs

9805309
Wiens

This research will investigate the faulting mechanism of deep earthquakes, which remains a fundamental question in geophysics. Recent studies, of which this is a continuation, have identified several interesting properties of deep earthquakes, including the large lateral extent of mainshock and aftershock faulting and the dependence of magnitude-frequency relations and aftershock productivity on slab temperature. This work will systematically investigate the variability of fundamental rupture parameters for the largest deep earthquakes recorded by the IRIS, GDSN, and WWSSN global seismic networks. In addition, the work will explore the relationship between regions of high moment release and the locations of aftershocks and background seismicity. The results will allow assessment of the extent to which slab temperature and background seismicity control deep earthquake rupture properties, and provide fundamental constraints for understanding the deep earthquake faulting process.